Technical Support To NSF's Office ofStudies, Evaluation, and Dissemination RFP SEE 91-013

The contractor will provide technical assistance to OSED in the performance of a variety of tasks. The tasks include evaluation planning, analysis of existing data, data base construction, survey administration, focus groups, site visits, case studies, dissemination, bibliometrics, and commissioning of papers. Personnel categories necessary to perform the tasks include: evaluation specialists, qualitative methodology specialists, measurement specialists, statiticians, task managers, dissemination specialists, computer systems analysts, editorial writers, bibliometrics specialists, survey administrators and support staff. //